RAPID: Impacts, Disruption, and Displacement After Low Attention Disasters: Experiences of Non-owner and Immigrant Households

This Rapid Response Research (RAPID) project examines life disruption, recovery resources, and displacement with a focus on non-homeowner and immigrant households in Marshalltown, Iowa after an EF-3 Tornado. The damage from this tornado was concentrated in older low-income neighborhoods with many uninsured houses, limited government assistance, and low capacity to provide replacement housing within the community. This research examines recovery needs resulting from social vulnerability especially tenure and immigration. The results will assist planners, emergency managers, and policymakers to incorporate approaches within recovery programs that better communicate assistance eligibility criteria with immigrants. This scientific research contribution thus supports NSF's mission to promote the progress of science and to advance our national welfare. In this case, the benefits will be insights to assist recovery of our most vulnerable populations after a disaster.

This research addresses gaps in the disaster literature with respect to low attention disasters that affect immigrants, renters and contract homeowners. Vulnerable households like immigrants and non-homeowners are at a disadvantage for accessing recovery assistance to complete home repairs and subsequently at a higher risk of long-term displacement. This project collects data to examine recovery experiences of immigrants and non-homeowners in the aftermath of the Marshalltown tornado that did not receive much attention and resources despite causing major damages in low income neighborhoods with a relatively higher percentage of minority, immigrant, and non-homeowner households. Hence, it offers a unique possibility for assessing the complex recovery challenges related to housing tenure and immigration after low attention disasters. Methods of data collection consist of conducting focus groups with households, one on one interviews, and participant observation. Analysis methods include qualitative coding of data through theme identification and constant comparison.